Conference and Book on: Student-active Science: Models of Innovation in College Science Teaching

*** 9454357 Weissglass, Julian Equity in Mathematics Education Leadership Institute This is a four-year project to disseminate effective strategies to accelerate progress in achieving equity in mathematics education. Two target audiences are a national cadre of 144 professional developers and a California cadre of teacher leaders. Each group will be involved in 24 days of workshops over two years with expectations to use these strategies in their own settings between workshop sessions. National participants will be recruited in teams from existing and forthcoming mathematics education projects. The project will provide on-going support for professional developers through electronic communications and a newsletter. The project request is $ 3,099,940 with cost-sharing as $ 809,212 or 26%. ***